SIAM Interdisciplinary Conferences in Applied Mathematics

This project consists of a series of interdisciplinary conferences in applied and computational mathematics conducted by the Society for Industrial and Applied Mathematics (SIAM). The conferences are designed to bring together mathematicians, engineers, and scientists who are developing and applying new mathematical concepts, methods, and algorithms. A key feature of this series is the inclusion of focused, interdisciplinary, academic/industry workshops in which mathematical, statistical and computational scientists from academia
can interact with mathematicians, statisticians, and computational scientists, engineers, and scientists in academia and in industry on specific areas and problems of practical interest. The primary objective of the conferences is to initiate new interaction among the creators and users of mathematics and thereby contribute to the understanding of mathematics and encourage its application to problems of society.